Chemical Study of the Earth's Mantle and Core

The principal investigators will study the high-pressure chemistry of materials that comprise the Earth's mantle and core. Studies of phase equilibria, thermodynamic properties, and structure will be carried out at high pressure and temperature using the diamond anvil cell and a variety of spectroscopic techniques. The work is crucial to an understanding of the Earth's deep interior.